Nonlinear Optics and Integrated Optical Switching with Ferroelectric-Liquid Crystal Waveguides

During the Phase II research it is proposed to develop travelling wave electro-optic modulators for near infrared light using micrometer dimension, second order ferro-electric liquid crystals (FLC) channel waveguides as the electro-optic medium. Research into channel formations techniques in low index polymer films and FLC smectic layer alignment techniques for micrometer dimension channels; electrode formation, optical waveguide coupling and radar frequency coupling techniques will also be carried out.